Acoustic Global Warming Feasibility Experiment

This proposal is to test the long-range capability for acoustic transmission from Heard Island in the south Indian Ocean to listening stations on the east and west coasts of the U.S. Since the travel time across the ocean is primarily a function of the ocean temperature, the signals may be inverted for ocean temperatures. Initially the work is to provide an acoustic signal and determine if may be heard sufficiently well to be used as a proxy for temperature. If successful, a long-term deployment may be considered for climatic monitoring purposes.